NSF-CONACyT Workshop on Computational Organization Theory; Monterrey, Mexico

IRI-9506670 Prietula, Robert University of Florida $6,000 - 12 months NSF-CONACYT Workshop on Computational Organization Theory This project is concerned with a focused, one-day NSF Workshop on Computational Organization Theory to be held in conjunction with 1996 International Symposium on Artificial Intelligence, hosted by the Instituto Tecnologico y De Estudios Superiorcs de Monterrey (ITESM) in Monterrey Mexico.